Undergraduate Faculty Workshop on Advanced Separation Processes

Advanced separation processes are critical to many of the traditional and emerging engineering fields. Therefore, it is important that undergraduate faculty be educated in this growingfield of separation science and technology in order to integrate itinto the engineering curriculum. Advancedseparation processes are being incorporated into biologicalengineering/biotechnology;hazardous waste management; specialty chemical and biochemicalproduction; food and beverage processing; biomedical engineering;and in the traditional chemical, petroleum, and energy industries.Two workshops are planned for Summer 1993 and 1994. The workshops will combine both lecture and laboratory components of advanced separation technology, thus providing participants with hands-on experience. Workshop participants will have lectures on the importance, process development, and applications of advanced separation processes.